LSAMP: Texas A&M System Louis Stokes Alliance for Minority Participation, Phase III Program: Cultivating the Future

The Texas A&M System Louis Stokes Alliance for Minority Participation Phase III
(TAMUS LSAMP III) program proposes to nurture the future. The program will
endeavor to sustain and extend hard-won academic gains in retention and learning
outcomes for under-represented minority (URM) students in science, technology,
engineering and math (STEM) disciplines, which have been achieved in partner
institutions during TX LSAMP Phase I and II. However, the foremost aim of the
proposed program will be, to advance the preparation of under-represented minority
(URM) students in science, technology, engineering and math (STEM) fields for
progression to STEM graduate degree programs and to K-12 teaching in STEM subjects.
Led by three veteran TX LSAMP partners, and the Office of the Vice Chancellor for
Academic and Student Affairs Texas A&M University System (TAMU System) the
proposed Texas LSAMP Phase III program will extend participation in its central
activities to the students of six additional TAMU System universities.

The proposed TAMUS LSAMP III will be a five-year, three-pronged program.
The first prong of the program features initial two-year pilot strategies for
conducting and modeling new, and institutionalizable .Pipeline Repair. tactics, which
are intended to help renew endangered URM STEM enrollment of new students at
TAMU and Prairie View, because these institutions enroll and graduate the largest
populations of URM STEM undergraduates in the TAMU system.
The second prong of the TAMUS LSAMP III program will include the core
.Undergraduate Student Development. strategies, which will be open to students of
all Alliance institutions. The strategies of this prong will operate throughout the five
years of the TAMUS LSAMP III program. This prong will aim first, to advance retention,
and academic attainment by improving the self-direction (self efficacy) of STEM URM
students, and then, to improve the quality of learning for URM STEM students, and
hence their persistence toward graduation, and progression, through undergraduate
research and teaching experiences.
The third prong may be characterized as .Graduate School and Teaching
Articulation.. It will consist of strategies for proactively negotiating an assisted
transition of TAMUS LSAMP students to STEM graduate programs, and preferably
those with strong systems to support URM student success, as well as encouraging and
assisting URM STEM students pursue professional K-12 teaching. These strategies of
this prong will be implemented in years three through five and will be made available to
target population students from all TAMU System LSAMP campuses. What all three-
program prongs will have in common is the commitment to seeding URM STEM
students with forward-looking, ambitious perspectives toward life-long learning.